Science Coverage on National Public Radio

With support from the National Science Foundation (NSF), National Public Radio (NPR) will provide five years of operation of NPR's Science Unit to provide science and technology news and information on NPR's MORNING EDITION, ALL THINGS CONSIDERED, and WEEKEND EDITION shows. Prior NSF support has allowed NPR to create stable, sustained in-depth science coverage on the national network of 335 local public radio stations. More than 9,000,000 people a month, or 2.5% of the U.S. population each week, listen to NPR's news magazines. Science coverage includes 400-500 science stories each year. NPR's News and Information Service is widely acclaimed; awards have included the Alfred I. DuPont Columbia University Journalism Award, and the Science Unit's staff's Westinghouse-AAAS Science Journalism Award and the National Association of Science Writers' Science in Society Award. With this five year award, NPR will consolidate the gains that have been made, continuing to provide the coverage that has earned their reputation, while moving towards financial independence from NSF. A FY87 30 month award of $574,449 and, subject to the availability of funds, following 12 month awards of $240,698 in FY89, $210,939 in FY90, and $180,623 in FY91 are recommended.